Acquisition of an NMR Spectrometer Equipped for Studies of Condensed Matter at Extremes of Pressure and Temperature

9305425 Marzke This award provides partial funding (57% of total cost) for the acquisition of components of a nuclear magnetic resonance spectrometer (NMR) system to be installed and operated in the Department of Physics at Arizona State University . The NMR unit will consist of a 300 MHz spectrometer equipped with a wide-bore superconducting magnet configured for nuclear magnetic relaxation and NMR spectroscopic studies in solids and liquids under extreme conditions of pressure and temperature. ***